Engineering Research Equipment Grant: Gas Chromatograph andHeadspace Sampler

A variety of projects will use the requested gas chromatograph. First, a project to determine fundamental mass transport parameters under very high heat flux rates will use the equipment. This project is designed to provide fundamental insight into the problem of puff formation in batch-fed rotary kiln incinerators. The second project involves the development of a flow-through bioreactor for degrading short chain chlorinated hydrocarbon pollutants. A third project involves soil gas surveys of contaminated regions to assess their suitability for in situ biodegration. Fundamental field work in this critical environmental area is extremely limited at present. Two minor projects will also utilize the equipment. The first will attempt the prediction of upsets in anaerobic digesters well in advance of conventional techniques. The second project will involve the isolation of bacterial strains capable of degrading compounds currently regarded as non-biodegradable, specifically several short chain chlorinated hydrocarbons. This equipment will significantly improve the research group's ability to make a variety of basic measurements, and it is expected to make a strong positive impact on the university's contributions to environmental research.